Third International Workshop on Positron and Positronium Chemistry

The Third International Workshop on Positron and Positronium Chemistry is to be held at Marquette University in Milwaukee, Wisconsin, July 16-18, 1990. The subject area of positron and positronium chemistry consists of the elucidation of the chemistry of these two species, and their possible utilization in materials science and engineering. This workshop will provide a proper forum for addressing fundamental physical-chemical issues that underpin the development and optimization of techniques for materials characterization. This workshop is being supported jointly by the Division of Chemistry and the Division of Materials Research at the National Science Foundation.